SBIR Phase I: Advanced Three Dimensional (3D) Woven Composites for Injury Prevention

This Small Business Innovation Research Phase I Project applies novel 3D weaving and
cellular matrix technologies to develop a thin, lightweight composite structure for impact
absorption and body protection in sports. The first application will be to design and
fabricate a soccer shin guard which significantly decreases the risk of bone fracture due
to impact. The primary strategy for constructing superstrong fabric preforms will employ
a patented 3D weaving technology in which fibers are interlaced in three axes without the
crimping or bending that occurs with traditional weaves or braids. The second strategy is
to significantly increase the strength and stiffness properties of the material per unit
weight by intentionally creating defined air voids throughout the composite structure
using a patented cellular matrix technology. In Aim 1, we will optimize the stiffness and
weight of different composite materials by varying the fiber, resin, total void fraction,
and fabric thickness. In Aim 2, we will use these novel, lightweight composite materials
to fabricate a variety of prototype soccer shin guards for maximization of player safety
and comfort. In Aim 3, the protective abilities of the newly designed shin guards will be
quantified and optimized via biomechanical impact testing.